Blowup Algebras of Ideals and Modules, and Applications

ULRICH, 9970504

The first part of the project aims at understanding blowup algebras of
ideals, which include Rees rings and associated graded rings. One of the
main objectives is to characterize the Cohen-Macaulayness of these
algebras in terms of reduction numbers. The principal investigator also
intends to describe blowup algebras by means of the equations defining
them. This is closely related to determining the equations of the image of
a rational map between projective varieties. The second part of the
project concerns Rees algebras of modules and their applications. One of
the questions deals with the defining ideal as well as the
Cohen-Macaulayness and normality of varieties of commuting matrices. In
essence, this is a problem about Rees algebras of certain modules of
projective dimension two. Another question concerns the Gauss image of
projective varieties and local analogues thereof. Phrased in terms of Rees
algebras of modules, the objective becomes to establish a lower bound for
the analytic spread of the module of differential forms.

Rees algebras of ideals are algebraic objects that describe the
blowup of a variety along a subvariety. Although blowing up is a
fundamental operation in the birational study of varieties, an explicit
understanding of this process remains an open problem. The aim of the
project is a detailed investigation of the algebras that arise in this
context. In addition, the wider class of Rees algebras of modules will be
studied, with a view towards various applications to algebraic and
geometric problems.